Global Reaction Kinetics of the Hetergeneous Formation of Polychlorinated Dibenzo-p-dioxins/Furans from Chlorophenols

CTS-9814345
Abstract

This is a study of one pathway to polychlorinated dibenzo-p-dioxins (PCDD) and polychlorinated dibenzofurans (PCDF), namely their formation from chlorophenols in the presence of catalytic surfaces. A differential flow reactor packed with "model" fly ash or fly ash from a municipal solid-waste incinerator is used. Realistic concentrations of chlorophenols are used. The role of oxygen is quantified, and mechanisms of formation of PCDD/F tested.

Polychlorinated dibenzodioxins/furans (PCDD/F) are among the combustion byproducts produced by municipal solid-waste incinerators. They (or at least some of the isomers produced) are among the most toxic materials known; their control should be a public health priority. This research looks at the mechanism of their formation in order to establish approaches for control.